Oceanographic Instrumentation

9619188 Weingartner This award to University of Alaska at Fairbanks will provide new water sampling instrumentation, shipboard computers, and other instrumentation for use on the research vessel Alpha Helix, operated by University of Alaska Institute of Marine Science as part of the University National Oceanographic Laboratory System research fleet. The shared-use instrumentation supported here will assist ocean researchers conduct studies in the North Pacific and Arctic Oceans in 1997 and in future years. ***